Heavy Metal Accumulation and Toxicity in Urban and Remote Chihuahuan Desert

A primary goal of the proposed research is to investigate an environment that historically has been subject to contamination by heavy metals, and to examine the putative toxicological effects of these heavy metals (particularly arsenic and lead) on samples of the biota characteristic of the heavily urbanized and industrialized El Paso/Cd. Juarez region in the northern Chihuahuan Desert. Using both the urbanized region and a study area remote from the urban area as a control habitat, studies, using multidisciplinary, integrated approach will be undertaken to (1) assess the extent of heavy metal contamination in representative species and the distribution of the contaminants through the food web, (2) analyze the capacity of microbes to metabolize the heavy metal contaminants and adjust for them at the molecular genetic level and (3) investigate the putative mechanisms of toxicity at the cellular level through experiments, initially, on plant growth, mutagenic load and gametogenesis in microfauna. A second goal of the proposed research is to provide a stimulating research/mentoring environment that will promote the entry of underrepresented minorities and women into biological sciences, particularly the rapidly to evolving field of environmental toxicology. Students will have the opportunity to become involved in innovative research from the ground up, by sharing in the responsibility of designing experimental protocols, collecting and analyzing the data. Students involved in the program will be encouraged to present the fruits of their research at local and national meetings, providing them with the opportunity to network with others in the field.